Reflecting on our Work: NSF Teacher Enhancement, K-6

9452859 Friel Reflecting on our Work: NSF Teacher Enhancement This 2.5-day conference convenes 35 experts in TE and school change to review, critique, and synthesize what has been learned over the past several years of TE projects in K-6 mathematics. Conferees include PIs, former participants of TE projects, and, to broaden the perspective, several representatives from elementary science. Issues addressed by the conference include: how best to effect teacher, school, and district change; how such change ultimately affects students; the resources (financial and human) available to effect systemic change; and assessing the impact of TE programs. A Proceedings of the conference will be published and will include 5 invited papers identifying major issues, and a set of conference recommendations to help guide NSF's upcoming massive, national teacher enhancement efforts.